Group International Travel Grant: Fourth International Conference on Fluid Properties and Phase Equilibria for Chemical Process Design; May 11-16, 1986; Helsingor, Denmark

Group travel support is provided for the Fourth International Conference on Fluid Properties and Phase Equilibria for Chemical Process Design. The travel funds will allow 16 US academic and industrial researchers to reach the conference site. Those supported include eight invited presenters of papers and eight young research workers. The first three conferences have produced highly desirable interactions between academic and industrial and government workers in this vital area for chemical process design and simulation. The meetings have also become the most important gatherings for workers in this field from all over the world. Finally, each conference has produced important collections of papers in their proceedings.